Oceanographic Technical Services 2006 - 2008, R/V Point Sur

0613006
Coale
This 3-year award to San Jose State University in California provides support for technical services during NSF-funded programs on R/V Point Sur, a 135' general purpose research vessel operated by Moss Landing Marine Laboratories (MLML) as part of the University-National Oceanographic Laboratory System research fleet. MLML will provide one shipboard technician on each cruise of R/V Point Sur to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. In addition to these basic support functions, the technical support group will maintain and provide an undulating towed vehicle system for making oceanographic measurements to qualified users requiring those services in support of their funded research programs on R/V Point Sur or other UNOLS vessels, as schedules allow.
***